Group Actions and Curvature

Abstract

Award: DMS-0513981
Principal Investigator: Krishnan Shankar

The study of non-negatively curved Riemannian manifolds is a rich
subject with many open problems. The PI proposes two research
projects in this area. The first project in collaboration with
R. Spatzier is continuation of recent work with R. Spatzier and
B. Wilking; we showed that a manifold with upper curvature bound
1 and spherical Jacobi fields along every geodesic must be
locally isometric to a compact, rank one symmetric space. This
has led to further interesting questions. The second project
proposes to find obstructions on the fundamental group of
positively curved manifolds in the presence of continuous
symmetry; other than the classical Synge theorem, there are no
known obstructions. The third project is in the area of geometric
group theory. In collaboration with N. Brady, M. Bridson and
M. Forester we constructed many new examples of first and second
order Dehn functions by constructing the so called snowflake
groups. We hope to pursue further questions about Dehn functions
for other classes of finitely presented groups (like CAT(0)
groups, higher Dehn functions etc.)

Most of us have an intuitive understanding of the term
curvature. Tabletops and desktops are flat while basketballs and
saddles are curved. My research concerns the study of objects in
higher dimensions that admit non-negative curvature. This falls
under the umbrella of differential geometry which is the language
Einstein used to express the general theory of relativity, our
best theoretical description of gravity and its effects on the
universe. Intuitively a positively curved object has the property
that all triangles drawn on it are fatter than triangles drawn on
a tabletop. Similarly, negative curvature corresponds to thin or
skinny triangles. So (the surface of) a basketball has positive
curvature while a saddle has negative curvature where the rider
sits. In higher dimensions, matters being much less visually
apparent, one uses equations and sophisticated geometrical
techniques to study the curvature of manifolds which are, roughly
speaking, objects with no sharp edges. One of the great mysteries
in differential geometry is the dearth of examples of
non-negatively curved manifolds, and not many structure theorems
either. My work deals with trying to understand the structure of
manifolds in the presence of certain constraints like
non-negative curvature or symmetry.